Boston University Conference on Language Development, November 2-4, 2001

The National Science Foundation supports the Boston University Conference on Language Development to be held at Boston University, 2-4 November, 2001. The conference is an internationally recognized meeting for researchers in the areas of first and second language acquisition, bilingualism, language disorders, and literacy development. It is attended by 400-500 researchers from around the world. Its presentations are chosen by anonymous peer review, and its proceedings are published by Cascadilla Press. This year's keynote speaker is Susan Carey; this year's plenary speaker is Daniel Dinnsen. Since 1976, the faculty and students of Boston University's Applied Linguistics Program have organized and run the conference. Dr. Shanley Allen leads this year's team of students and faculty.